Dissertation Research: Sex Differences and Social Bonds in Captive Juvenile Rhesus Macaques

The proposed study of captive juvenile rhesus macaques will fill in several gaps in our knowledge of primate social development. One of the most significant influences on an individual's development is its gender. This research project will provide important data which should aid in the construction of general principles regarding the range and robusticity of gender differences in primate behavior. Of particular interest to this study is how a primate's gender affects the partner preferences and quality of social relationships juvenile rhesus macaques form. Although strong gender differences in social bonds and interactions are apparent among adult rhesus macaques, it is unknown whether juveniles exhibit these same differences, or when these behavioral patterns arise. Consequently, a major goal of this study is not only to document gender differences in behavior which occur among juveniles of this species, but also to describe when the differences observed among adults originate. Furthermore, the proposed study will test a previously untested assumption that behavioral development represents a continuous, linear process. Recent research suggests, however, that this model of behavioral development may not be universal among primate species, especially where gender differences in behavior are concerned. The proposed study will provide data which will aid in the development of a more accurate model of primate behavioral ontogeny.